High Performance Connection to vBNS

This award is made under the high performance connections portion of ANIR's "Connections to the Internet" announcement, NSF 968-102. It provides partial support for two years for an OC-3 connection to the vBNS. Applications include projects in remote NMR studies, modeling of problems in mathematical sciences, data base design, acquisition, modeling and visualization; management of primary care at satellite centers, MPEG2 distance leaning technology, and static and dynamic physical propoerties of polymers using visualization methodology. Collaborating institutions include: NASA-Lewis, OARnet, Ohio SuperComputer Center, Texas Tech University, Purdue University, Medina County Schools, University of Delaware, University of Wisconsin, Madison and others.